Mathematical Sciences: The Bers Colloquium

9505485 Keen The proposed conference is in the area of complex analysis. The planned conference inaugurates a series of conferences, The Bers Colloquium, to be held triannually, whose theme will be a topic in the Ahlfors-Bers mathematical tradition. Lars Ahlfors and Lipman Bers have worked on value distribution theory, Teichmuller space, complex dynamics, and other areas of function theory; have had a significant impact on the modern development of one variable complex function theory. Ahlfors and Bers can be regarded as founding members of the modern theory of functions of one complex variable, and the proposed conference is a celebration of their mathematical heritage.